Self Study of the Science and Mathematics Programs of the Columbus Public Schools

9353340 Mixon The Columbus Public School District plans to collect and analyze data regarding components of the school district that contribute to and impact upon student learning. The planning process consists of three steps: defining and achieving consensus on a vision; collecting data to analyze strengths and weaknesses of the school district; and developing an implementation plan. Two groups of consituents, the Leadership Council and the USI Staff, comprise the Planning Team. The Leadership Council will review collected data, make recommendations based on this data, and garner additional support from other stakeholders. The USI Staff will gather data, prepare reports for the Leadership Council and draft the implementation plan. At the conclusion of the self study, Columbus will have developed a documented study of existing programs, reached consensus on the priorities for achieving comprehensive reform, obtained the commitment of key constituencies to support systemic change in the Columbus Public Schools, articulated a vision for mathematics and science education; identified a detailed plan to guide their reform. ***